Parsing and Descriptional Succinctness in Natural Language

ABSTRACTS Research in computational linguistics has introduced new grammatical formalisms for natural language (NL) which achieve greater expressive power than context-free grammars through the use and manipulation of complex structures such as trees and graphs. It is argued that these formalisms allow for more succinct descriptions of linguistic phenomena than less powerful grammars. However, the enhanced power of these formalisms raises important questions concerning their computational feasibility. Specifically: (1) How efficient can NL parsing be carried out for these powerful grammars? (2) Can the purported succinctness gain when moving from a weaker to a more powerful grammar be quantified in precise mathematical terms? The planned research is aimed at resolving these two questions. First, upper bounds on the complexity of parsing will be derived, and the most efficient parsing algorithms, both serial and parallel, for different natural language grammars will be developed. Secondly, a mathematical framework for comparing the relative succinctness of different formalisms will be developed. Using grammar size as a measure of descriptional complexity, the gain in succinctness (if any) when moving from a weaker to a more powerful will be quantified precisely. The results of this investigation will be useful in assessing the practicability of building natural language processing systems based on powerful grammatical formalisms.